Macromolecular Architecture and Properties

The PI plans to finish the preparation of hybrid inorganic ceramic materials and electrically conductive polyaniline. The ceramic materials are porous zeolites(zeolite 13X and zeolite 5A) and montmorillonite clays. Interpenetrating polymer networks of poly(2,6-methyl-1,4-phenylene oxide) and polyaniline as well as polyurethane foams coated internally with polyaniline will be prepared and by transmission and scanning differential calorimetry, DC electrical conductivities, and E.S.R. spectroscopy to determine also their magnetic properties. Theoretical studies of a number of equilibrium and non-equilibrium density functional studies related to polymers as well as investigations of some transport problems related to polymer viscosity, will be completed.
%%%
This research is in the area of theoretical and experimental investigations of important hybrid materials.